Alexandrov's Geometry and Applications

Abstract

Award: DMS-0406482
Principal Investigator: Anton Petrunin

The principal investigator proposes to continue his research in
Alexandrov geometry and its applications, studying collapse with
lower curvature bound (joint with W.Tuschmann and
V.Kapovitch). This part of the project can be thought of as an
attempt to generalize and refine Gromov's Betti number theorem.
This research can be divided into three main parts:
(i) Finding new topological invariants which are finite on any family
of ``similar'' manifolds which the PI has described.
(ii) Using the gradient push to limit the number of bundles with the
same fiber and base which can admit given lower curvature and upper
diameter bounds
(iii) Showing that simply connected spin manifolds with non-zero
A-hat-genus can not be almost non-negatively curved.
The principal investigator also proposes to continue his study of
positive functions of curvature which give a bounded integral
along any positively curved manifold with lower curvature bound,
upper diameter and lower volume bound. This should clarify the
nature of curvature tensors of Alexandrov spaces.
The PI would like to show that the curvature tensor for
Alexandrov spaces is well defined as a measure valued tensor in
any distance co-ordinates. If true, this should give a solution
to such long standing questions as whether a convex surface in
Alexandrov space is an Alexandrov space.

The principal investigator proposes to compile a collection of
exercises in modern geometry. The idea is to find problems which
could be solved in one step. However solutions are supposed to
be non trivial and would also lead to a discovery of important
ideas in modern geometry. PI has already gathered some number of
such problems which can be viewed online and many people had been
engaged in this project. This project is oriented toward
students and young scientists.

Riemannian manifold could be considered as a simplified version
of space-time. The author considers an approach to studing
Riemannian manifolds. It is based on considering extremal
metrics, in an appropriate sense, for example how Riemannian
manifolds collapse to lower dimenssional objects. This method
makes possible to get new resuls in the main stream direction of
Riemannian geometry: how to make conclusions about global
structure of space basing on local properties.